Conference: NSF Workshop on Future of AI and Chemistry

Pratyush Tiwary of the University of Maryland is supported to organize a workshop on how artificial intelligence can best support chemical discovery. The workshop will bring together participants from academia, industry, government, and publishing, spanning expertise in chemical theory, molecular simulation, experiment, machine learning, data curation, and scientific publishing. The workshop will address the challenge that chemical information is often scattered across instruments, notebooks, papers, simulations, databases, and private archives. It will examine how this information can be organized and used more effectively so that AI tools can help discover new molecules, materials, and chemical processes while remaining scientifically reliable. Broader impacts will include a public roadmap for the community, recommendations for shared data and infrastructure, and engagement of students and early-career scientists.

The workshop will address practical needs for chemical data, methods, validation, and infrastructure. Before the meeting, participants will help refine the agenda, with likely topics including how experimental and computational data, simulation trajectories, and negative results can be made more useful for building and testing models. The discussions will consider what information must accompany chemical data for it to be useful beyond the laboratory where it was produced, how AI models should be evaluated before they are trusted, and how open-data goals can be balanced against the commercial value of data, models, and workflows. The outcome will be a community roadmap for improving how chemical data are organized, shared, evaluated, and used, with input from academia, journals, repositories, national laboratories, and industry. Broader impacts will include dissemination of the roadmap and participation by trainees and early-career researchers.